Postdoctoral Research Fellowship in Biosciences Related to the Environment for FY 1997

Abstract DBI 9750214 David Hooper This action funds an NSF Postdoctoral Research Fellowship in Biosciences Related to the Environment for 1997. This fellowship provides an opportunity for the Fellow to gain additional scientific training beyond the doctoral degree and to pursue innovative and imaginative into the fundamental mechanisms underlying the interactions between organisms and their environment at the molecular, cellular, organismal, population, community and/or ecosystem level in any area of biology supported by the Directorate for Biological Sciences of the National Science Foundation. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled "Storage of carbon in arctic tundra plants in response to climatic change." The research is investigates temperature as a direct effect and nutrient availability as an indirect effect on plant gross productivity. Predictions of flux measurements from 2 models, GASFLUX and MBL/CSA, are being compared for different arctic plant communities. The differences in these models will be exploited to better understand how plant functional traits control the carbon balance in the tundra ecosystem.